Steiner Trees and Related Problems

This research concentrates on the analysis and design of heuristics for Steiner minimum trees and related problems. These improvements are based on extensions of recent research on Steiner ratio and better heuristics for Steiner minimum trees. Various researchers have already discovered new methods of studying Steiner tree problems. With such methods, two long-standing problems were recently solved. The goal is to deepen and extend these methods to solve other open problems and to improve heuristics for Steiner minimum trees and other related problems. The research covers the following two aspects: (1) analysis of heuristics; and (2) construction of heuristics.